Dissertation Research: Evolution in Lopezieae (Onagraceae)

The study will investigate phylogenetic relationships within the genus Lopezia (Onagraceae) using molecular techniques involving chloroplast and ribosomal DNA. Particular emphasis will be on (1) the relationships of the morphologically divergent sections within the genus, (2) the tempo, mode, and pattern of molecular evolution, (3) the congruence of rates of morphological and molecular evolution, (4) the origins of chromosome number changes in section Pelozia, and (5) the comparative genetic variation within and among widespread and locally endemic species. The study will integrate field and laboratory work, and will help clarify the relationships between molecular studies and phylogenetic and taxonomic studies based on morphology, cytology, anatomy, and biochemistry.